Behavior of the Ricci Flow and Related Curature Flows

ABSTRACT DMS - 0202796. PI: Dan Knopf

My research centers on geometric evolution
equations, notably the Ricci flow and related curvature flows. I plan
to study seven areas in which I have obtained prior results, and where
continued work is likely to yield new and useful mathematics. [1] When
a flow converges, it is valuable to study the stability of its limit, in
order to improve our global understanding of the dynamics of flows. [2] If
a flow fails to converge but behaves in a nonsingular way, one can still
study the dynamics of this collapse by classifying the asymptotic behavior
of nearby solutions. [3] In most cases, a flow does become singular; so it
is of paramount importance (particularly in regard to Hamilton's program
to resolve Thurston's Geometrization Conjecture) to develop a better
classification of singularities. [4] The basic method of studying
singularities is the construction of a sequence of parabolic dilations
(blow-ups). To take limits of these solutions, one must obtain (partial)
injectivity radius estimates by various means. [5] The most powerful (but
perhaps most difficult) way to obtain such injectivity radius estimates
would be to study and extend existing Harnack estimates of the type
pioneered by Li and Yau and further developed by Hamilton. [6] It is
also useful to study the asymptotic behavior and stability of parabolic
dilations at certain model singularities (a method which has been very
fruitful in studying the mean curvature flow). [7] Further information
about singularities can be obtained by constructing and studying solitons:
self-similar solutions that often arise as limits of blow-ups. Moreover,
Kaehler Ricci solitons have interesting connections with complex geometry
and algebraic geometry.

Geometric evolution studies the way an
object's shape changes. In some cases, such as the mean curvature flow and
porous media flow, the motivation is to model certain physical phenomena
such as the motion of an interface in forming metallic alloys, the shape
of a thin film of highly viscous oil, or the flow of oil in shale. In
other cases, the goal is to improve the shape of an object, either to find
optimal (most efficient) shapes, or else to help mathematicians recognize
and classify geometric objects. My own research is part of a large program
to resolve one of the most compelling open questions in mathematics: the
desire to understand and classify all possible 3-dimensional shapes. But
regardless of whether their motivation comes from material science or pure
mathematics, all geometric evolution problems have much in common; so that
the field benefits from rich cross-fertilization. In particular, ideas and
techniques that are developed for any of these highly nonlinear problems
are usually quickly adaptable to related applications.